K-Theory of Operator Algebras and its Applications to Geometry and Topology

9800869 Yu The investigator proposes to study the K-theory of Roe algebras and group C* algebras. The K-theory of Roe algebras and group C* algebras both serve as receptacles of higher indices of elliptic operators and have important applications to problems in differential geometry and topology such as the existence problem for Riemannian metrics with positive scalar curvature, the Novikov conjecture on the homotopy invariance of higher signatures, and the zero-in-the-spectrum conjecture on the spectra of Laplacians. The methods to be employed include controlled operator K-theory, infinite dimensional almost flat bundles, cyclic cohomology, and combinatorial Chern-Connes characters. Manifolds are spaces glued together by Euclidean spaces. Examples of manifolds include spheres and tori. In differential geometry one studies how manifolds are curved. For example a flat piece of paper has zero curvature while the sphere has positive curvature. This is why we can not bend a piece of paper into a sphere. A basic problem in differential geometry is to determine when a manifold can have positive scalar curvature. Another important problem in mathematics is the classification of manifolds. By surgery theory the classification problem for higher dimensional manifolds can be essentially reduced to the Novikov conjecture. The K-theoretic higher indices of certain elliptic differential operators can be used to attack the positive scalar curvature problem and the Novikov conjecture. A key step in this analytic approach is the computation of the K-theory of Roe algebras and group C* algebras.